Workshop on COSPEC, April, 1997

9706265 Williams The remote sensing of gas emission from volcanoes is an important tool for understanding processes occurring within volcanoes and for predicting their eruption. The correlation spectrometer, often referred to as the COSPEC, has been in use for monitoring sulfur dioxide gas emissions for almost 25 years, during which time there have been numerous modifications in its design, in the mode of its application in the field, and in the interpretation of the data measured. This award will support a five-day workshop that will bring together COSPEC users from most of the world's volcano observatories (with their instruments) in order to discuss the theory of the instrument, optimal methods of application suited to different natural circumstances, and to calibrate their instruments against a common sulfur dioxide emitter source. ***